Gordon Research Conference on Plasma Chemistry August 15-19, 1988; Tilton, New Hampshire

The two main areas of plasma chemistry are low pressure (cold) and high pressure (thermal) plasma chemistry. The application of cold plasma chemistry technologies was responsible for the recent revolution in micro-electronics. The use of thermal plasmas offers the possibility to develop new materials with unique properties or to process existing materials in a better and/or more efficient manner. A large number of opportunities exist for the possible development of thermal plasma technologies on an industrial scale. Recent examples are diamond thin films and high temperature super-conductors. Major research efforts are underway in many countries, including the United States, Canada, Japan, Europe, and the U.S.S.R. The Tenth Gordon Conference on Plasma Chemistry in Tilton, New Hampshire (August 15-19, 1988), will bring together about 135 of the world's leading scientists in the area of plasma chemistry to discuss recent progress in this area. These meetings are of major importance for continued progress in the understanding of the fundamental concepts as well as the possible future applications of plasma chemistry. This meeting will have attendees from universities, industry, and government to accelerate the technology transitions of plasma chemistry.